Individual International Travel Grant to Germany for StudentExchange Programs (February 1994)

9319837 Frances This is a request for an Individual International Travel Grant to visit several German Universities in February of 1994. The goals of the trip are the following: (i) to discuss mutual exchanges of students between Purdue School of Chemical Engineering and German Universities; and (ii) to discuss research interactions between the universities. The ultimate target is to involve U.S. undergraduate students for coursework or research, graduate students for coursework or research, and post-doctoral students. U.S. students are expected to benefit from the high level of chemistry and chemical engineering education and research in German universities and from their strong industry-university interactions. Moreover, students will acquire a better international perspective and be better prepared for tackling globalization of U.S. industry. A report will be provided to NSF. ***